SBIR Phase I: A mobile, device-based, screening tool for assessing K-6 students’ cognitive and motor skills via machine learning handwriting analysis

The broader impact of this Small Business Innovation Research (SBIR) Phase 1 project is to improve the assessment of cognitive and motor skills in K-6 students. More specifically, this project will develop and perform feasibility testing of a novel, objective, and machine learning-driven approach to analyzing student handwriting proficiency, a measure of cognitive and motor skills. Through the use of a smart device application, end-users (teachers, aides, and parents) will be able to take a photo of a student's handwriting and receive immediate results regarding proficiency, handwriting error types, and targeted intervention suggestions. Given the myriad of visual motor, fine motor, and higher-order cognitive skills needed to generate a handwriting sample and the fact that up to 30% of students have difficulties, there is a need for new and better detection schemes. The identification of cognitive and motor skill deficiencies is becoming especially important with the increased use of virtual learning environments due to the COVID-19 crisis. Students are interfacing more with computers, and teachers have decreased access to handwriting assignments.

This Small Business Innovation Research (SBIR) Phase 1 project focuses on developing machine learning (ML) algorithms to generate highly accurate, rapid, and objective predictions of handwriting proficiency. These algorithms seek to predict the handwriting error sub-type. ML analysis of handwriting images has never been done before. Through the use of data annotation schemes, highly sensitive and grade-specific algorithms will be created and accessed by a smart device application following the acquisition of a single photo of a single handwritten sentence. This technology is envisioned as a universal screening tool to be used at the beginning of each school year to identify students with subpar handwriting proficiency. The real-time analysis of handwriting proficiency will allow for earlier identification and earlier interventions to improve student outcomes and deliver cost savings to school districts.